Development of a Kingdon Trap Mass Spectrometer for High Performance Chemical and Biochemical Analysis

With support from the Major Research Instrumentation (MRI) Program, Prof. R. Graham Cooks of Purdue University will develop a state-of-the-art Kingdon trap mass spectrometer for high performance chemical and biochemical analysis. This instrument represents a fundamentally new approach to high accuracy/precision mass measurements. In addition, its performance should be equivalent to a Fourier Transform-Ion Cyclotron Resonance (FT-ICR) instrument, which is considerably more expensive.

The project will impact the education of a number of graduate students and postdoctoral associates at Purdue, who will work directly to develop the instrument or will be involved in its testing. A set of short courses in biological instrumentation will also be offered.